Connecting Weber State College to WESTNET

Weber State College will connect their campus network to WESTNET (a regional network which is part of the NSFNET). Direct connection to WESTNET will provide researchers with improved access to national networks such as CSNET/Bitnet and USENET. Improvement is sought in reliability, speed, turn-around, flexibility, and functions such as file transfer, remote login, and teleconferencing. The Weber State College connection to WESTNET will support and enhance currency and excellence in teaching and research by facilitating collaborative research, curriculum development, as well as communication among national committees on which faculty serve and chair. Access though WESTNET to bibliographic material and to computer systems not available on campus such as supercomputers will broaden the computing base for both faculty and students. This universal availablity will enhance students' preparation for courses and seminars and will especially impact students in science and engineering.***//